National Sea Grant College Program, Knauss Sea Grant Fellow

Funds are transferred to NOAA to support one 2002 NOAA Knauss Sea Grant Fellow within the NSFDivision of Ocean Sciences. The Fellow will work with OCE program staff for one year and participate in various activities related to ocean science research, policy, and marine education. The Fellow will gain valuable first-hand experience by working on diverse activities related to ocean science research policy and administration. The Fellow will work with the Ocean Section and the Oceanographic Technology & Interdisciplinary Coordination Program. The National Sea Grant Federal Fellowship Program is administrated through NOAA's Office of Oceanic Research Programs.